U.S.-Korea Cooperative Research: The Application of Non- Destructive Techniques to Investigate Cavitation in Superplasticity

This proposal requests funds to permit Dr. Terence G. Langdon, Materials Science Department, University of Southern California (USC), to pursue with Dr. Ho Chul Kim, Professor of Physics, Korea Advanced Institute of Science and Technology (KAIST), for 24 months, a program of cooperative research on the application of nondestructive techniques to investigate cavitation in superplasticity. The collaborators will use the excellent facilities at KAIST to perform nondestructive testing of samples provided by the testing laboratory in the United States. Facilities of the type at KAIST are not available at USC. Superplasticity refers to the ability of some metals to exhibit exceptionally high neck-free elongations, often in excess of 1,000%, when pulled in tension at elevated temperatures. This phenomenon is of considerable commerial interest because of the any potential applications in sheet-metal forming. A major problem in superplasticity is the nucleation and growth of internal cavities. These cavities may lead to a significant degradation of the post-forming properties of the material. The collaborators will attempt to obtain indirect information on cavity size as a function of both specimen history and testing procedures. They also will attempt to correlate results of nondestructive testing at KAIST with parallel optical examination at USC. The collaborators are highly respected scientists in the field of this research. The present project will allow them to combine their talents and interests for mutual benefit. This project is relevant to the objectives of the U.S.-Korea Cooperative Science Program which seeks to increase the level of cooperative between U.S. and Korea scientists and engineers through the exchange of scientific information, ideas, skills, and techniques and through collaboration on problems of mutual benefit. Korean participation in the project is supported by the Korea Science and Engineering Foundation (KOSEF).